Development of a Beamline for Condensed Matter Physics and Materials Research at the Advanced Photon Source

9312543 Mochrie The United States is building a "third generation" synchrotron x- ray source with a total project cost in excess of $1 billion: The Advanced Photon Source (APS) at Argonne National Laboratory. At the APS, one may expect an improvement in the source brilliance by three-to-four orders of magnitude. As a result, it will become possible to pursue experiments using techniques completely novel to the x-ray regime such as intensity fluctuation spectroscopy. In addition, current techniques, such as surface x- ray scattering, time-resolved scattering, and x-ray magnetic scattering will be further refined to yield insight that is beyond the scope of current sources. It is essential that high quality, NSF supported, university groups play a leadership role in the research carried out at the APS most especially because of the role that the facility can play in graduate education. This project will develop a beamline at the APS to carry out forefront research in condensed matter physics and materials science. The scientific program involves: (a) intensity correlation fluctuation using coherent x-rays; (b) scattering studies of surface phase transformations, structure, kinetics and growth; and (c) x-ray magnetic scattering studies of novel magnetic systems, including disordered magnetic systems. This beamline will be shared by scientists from Massachusetts Institute of Technology, IBM, and McGill University, and will be available to other scientists, as well. ***